Conference: Workshop on Harmonic Analysis and Partial Differential Equations

The Workshop on Harmonic Analysis and Partial Differential Equations is a three-day research conference hosted by the Department of Mathematics at the University of Pittsburgh on November 14-16, 2025. The workshop is bringing together researchers at various career stages working at the intersection of harmonic analysis, geometric measure theory, and partial differential equations. The event aims to highlight recent advances in the field, foster new collaborations, and stimulate scientific exchange. This award supports the travel expenses for graduate students and other early-career participants from universities across the United States. The website for the meeting is: https://sites.google.com/view/hapdes-workshop/home.

The workshop focuses on recent developments at the intersection of harmonic analysis, geometric measure theory, and partial differential equations, with particular emphasis on applications to elliptic partial differential equations. The program features invited lectures by leading experts alongside presentations by early-career researchers and includes a research poster session devoted to highlighting recent work by early-career participants, thus enabling their full participation in the scientific program.